Computer and Information Science and Engineering Research Instrumentation

A powerful color workstation for a Vision/graphics lab will be provided for researchers at SUNY-Stony Brook for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of: (1) An Integrated Approach to the Structural Description of 3D Scenes for Robot Manipulation (2) An Architecture for 3D Voxel-Based Graphics (3) Compression of Digital Images (4) Recognition of Schematics (5) Regularization with Discontinuities.